Enhancing Undergraduate Research Opportunities in Physics

9423934 Dynes This grant will initiate a "Research Experiences for Undergraduates" Site in the Physics Department at the University of California-San Diego. The program will involve students, recruited primarily from southern California, in the research programs of the department. A number of professional events will be arranged for the students. ***